Beyond the Industrial Revolution in the Middle School: Teacher Enhancement in Science, Mathematics and Technology Through Interdisciplinary Studies

This project, entitled Beyond the Industrial Revolution in the Middle School, will provide a teacher enhancement program for Middle School teachers. It will be offered for three summers to 10 "Core Teachers" and 20 regular teachers making a total of 90 teachers served altogether. The "Core Teachers" have the additional responsibility for follow-up activities with their colleagues as well as course development for the summer program. The program is interdisciplinary and follows the broad topic: the industrial society as a manufacturing and distribution system for material goods. The emphasis and focus will be on several subtopics including production engineering, transportation,energy and power, industrial chemistry, mathematical tools and the underlying social system. The summer program will be three weeks in length. Follow-up and evaluation activities are included in the program. The goals of the project are: to provide Middle School Teachers with new information outside their own discipline and to enhance their ability to work across two or more disciplines so as to spark enthusiasm and interest in science, technology and mathematics in their students; to encourage the teaching of science, technology and mathematics in the broad context of history and contemporary social issues across the disciplines as well as in the separate disciplines; and to develop a model for teacher enhancement in interdisciplinary studies so that this broad contextual approach can be sustained within the Middle School curriculum. The project will be held at the Tsongas Industrial History Center and will involve Center staff and University of Lowell faculty in science, engineering, mathematics and history. The institute will include formal classes, hands-on and laboratory experiences and field trips. The cost of the project covered by the National Science Foundation is $607,219 and is being matched by $230,217 from the Tsongas Industrial History Center. This constitutes a match of about 38%.